Upgrade of MIRAC2, a Mid-Infrared Camera for Astronomy

Abstract HOFFMAN, W. F. AST-9618850 Funds will be used to adapt the Steward Observatory Mid- Infrared Array Camera (MIRAC2) for operation on the up- graded, single mirror "MMT" (Multiple Mirror Telescope). Modifications include modification of the cryostat case and guider box, provision of an interface structure to the MMT, and modifications to the image acquisition and processing circuitry and software.